The Culinary Institute of America's Proposal to Connect to NSFNET

9504460 Singh The Culinary Institute of America requests support from NSF for connection of the campus networks for the Culinary Institute of America to NYSERNet and the Internet. NYSERNet is the midlevel network located in the state of New York that will provide operations and network information services. It will provide the Culinary Institute of America a 56KB connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States The Institute needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the The Culinary Institute of America.